Transition Metal Boryl and Borylidene Complexes: Synthesis and Reactivity of Unusual Metal Ligand Interactions

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports study by Dr. John F. Hartwig of the Chemistry Department, Yale University, on transition metal complexes with boryl and borylidene substituents. Borylidene complexes have not previously been prepared. Boryl complexes of a wide variety of metals containing from zero to eight d-electrons will be synthesized using methods demonstrated by Hartwig in preliminary work. Basic information will be compiled on structure and reactivity of this class of compounds which has not been definitively characterized. The boryl species are of direct interest because of their relevance to metal catalyzed hydroboration, which is widely used in organic synthesis, including stereospecific synthesis. These compounds may display novel reactions not previously observed in related compounds with metal carbon or metal oxygen bonds. %%% Compounds which contain one or two bonds between a transition metal and a boron atom have not been extensively studied. They are analogs to other compounds containing metal-carbon bonds which are known to be useful catalysts for organic reactions. Because of the different electronic characteristics of the boron-containing compounds, they have been shown to have useful catalytic properties, but their potential has not been fully explored. Dr. Hartwig will develop synthetic methods for preparing metal-boron compounds, determine their structure and basic properties, and test their reactivity, particularly as related to their potential use as catalysts.